SHF: Small: Foundations of Just-in-Time Compilation

Modern programming languages ranging from Java to Matlab rely on just-in-time compilation techniques to achieve performance competitive with computer languages such as C or C++. What sets just-in-time compilers apart from batch compilers is that they can observe the programs actions as it executes, and inspect its state. Knowledge of the program's state and past behavior, allows the compiler to perform speculative optimizations that improve performance. The intellectual merits of this research are to devise techniques for reasoning about the correctness of the transformations performed by just-in-time compilers. The project's broader significance and importance are its implications to industrial practice. The results of this research will be applicable to commercial just-in-time compilers for languages such as JavaScript and R.

This project develops a general model of just-in-time compilation that subsumes deployed systems and allows systematic exploration of the design space of dynamic compilation techniques. The research questions that will be tackled in this work lie along two dimensions: Experimental -- explore the design space of dynamic compilation techniques and gain an understanding of trade-offs; Foundational -- formalize key ingredients of a dynamic compiler and develop techniques for reasoning about correctness in a modular fashion.